Computer Methods in Undergraduate Physics Instruction Workshop

A seven day workshop is being offered by the physics department faculty for twenty-five undergraduate physics faculty members selected from postsecondary institutions in Puerto Rico. The program is enhancing the knowledge and experience of undergraduate faculty members on computer methods in physics instruction in order that they may incorporate their increased knowledge and experience in their undergraduate teaching. The methodology consists of hands-on computer programming methods and numerical analysis experience, using eleven representative exercises selected from classical and quantum physics, to familiarize the physics faculty with different types of numerical and analysis techniques. The program participants are being supplied with programs, manuals, instructional materials, and software of all topics covered. The main numerical methods being employed are Euler's method, the Newton-Raphson technique, and the Pade approximation procedure. The workshop is stimulating creativity and innovation in the teaching of physics at the undergraduate level with the result that talented undergraduate students will have a better understanding of physics and be attracted to a career in the physical sciences.